Radio Interferometric Tracking of Wireless Nodes Indoors

The project aims at developing the foundations and the technology required for fine-grain indoor localization of wireless nodes using radio interferometry. Specifically, the project will develop a propagation model for radio interference signals in severe Multipath environments and an allocation strategy of frequency bands and channels to minimize RF multipath effects, maximize accuracy, and minimize measurement time.
The project will also investigate how localization algorithms could work with linear combinations of distances of four nodes provided by the interferometric measurements as opposed to traditional pair-wise range estimates.
The expected results of the research are a set of ranging, localization, and tracking services that achieve high precision localization even indoors and a corresponding reference implementation on an existing hardware platform.
The implementation will enable extensive experimentation to gain additional insight into different reverberant environments as well as to validate the theoretical results under a range of different real-world conditions.
The results can potentially enable many location-aware applications, such as accurate asset tracking in warehouses, precise localization of 802.11 nodes in WiFi networks, navigation for emergency personnel, as well as many indoor applications of wireless sensor networks.